Cooperative Transport and Social Navigation of Physical Human-Humanoid Teaming with Bidirectional Communications

The creation of robots that can partner safely with humans in difficult tasks, such as carrying heavy objects across a crowded room, has populated the imagination of many, but in practice, has been elusive. This grant supports research on how humanoid robots can work safely with people to move large, heavy, or awkward objects through human environments. Many important jobs in manufacturing, logistics, healthcare, disaster response, construction, and daily living require people to transport objects while avoiding obstacles, stairs, narrow passages, and other people. Current robots are often limited by rigid preprogrammed behavior and do not adequately understand a human partner's physical state, intent, comfort, or need for clear communication. This project addresses the fundamental challenge of enabling a human and a humanoid robot to coordinate physical effort, communicate intent, and navigate safely in shared spaces. The results could advance science by improving understanding of human-robot physical collaboration and could advance national health, prosperity, and welfare by supporting future assistive and industrial systems that reduce physical strain, improve safety, and expand access to robot support in settings designed for people. The project will also support education and workforce development by training students at the intersection of robotics, wearable sensing, human factors, and machine learning, and by creating outreach activities that connect robotics with human behavior and safety.

The project will create an integrated planning and learning framework for human-humanoid collaborative transport in realistic environments. The project will combine wearable motion sensing, hand and foot force sensing, and pass-through mixed reality interfaces to estimate human posture, effort, intent, fatigue, situational awareness, and cognitive workload while limiting feedback to human partners with sparse, task-relevant cues. The project will also investigate how situational awareness, readiness to collaborate, and trust can be inferred from human behavior and strengthened through non-traditional humanoid cues, such as body motion, sparse visual overlays, and fingertip haptic signals. The project will develop ergonomics-aware task and motion planning methods that incorporate human state estimates as costs, constraints, and role-adaptation triggers so the robot can adjust its force, posture, timing, and communication strategy. It will also develop reinforcement learning methods for social navigation in which the human-humanoid-object team moves among pedestrians while maintaining safety, comfort, and predictable motion. Experiments will compare reduced, visual, haptic, and combined sparse-cue feedback conditions; measure task success, situational awareness, workload, ergonomic risk, and interaction quality; and use a participant design with both returning and newly recruited participants to support robust validation. The expected contribution is new scientific knowledge and open research tools for physically coupled human-humanoid collaboration that is safe, legible, ergonomics-aware, and socially acceptable.